DOE EPSCoR 2003 Conference; June 2 - 4, 2003, Albuquerque, New Mexico

The 2003 EPSCoR conference, sponsored jointly by the Department of Energy and the National Science Foundation, will be co-hosted by Sandia National Labs and Los Alamos Lab. New Mexico EPSCoR is providing an opportunity for researchers, faculty, and students from EPSCoR jurisdictions to establish collaborations with the labs in state-of-the-art science and technology. The conference, to be held in early June, focuses on the following questions: What are the laboratory, university, and national needs for research, talent, and strategic collaborations? How does one meet those needs by increasing the diversity and quality of university/lab/state collaborations? What are the successful methods of developing and maintaining university/lab collaborations? A formal evaluation of the conference will provide both immediate feedback and a follow-up phase to explore the nature of lab contacts and any linkages to the work of the conference.